Late Triassic Vertebrate Faunules from the Deep River Basin (Newark Supergroup) of North Carolina

This ROW Research Planning Grant is for reconnisance sampling of Late Triassic rocks in North Carolina. Previous work to the north and in these basins suggests that the rocks will yield significant assemblages of vertebrate fossils. The fossils will be identified by reference to museum collections. The fossils and the enclosing sediments will be used for paleoenvironmental reconstruction and to gain insight into the causes and consequences of the Late Triassic extinction event. The field and museum work to be supported by this RPG will enable the PI to develop a research program in an area that will involve her with a larger research community.